4th International Colloquium on Structural Stability will beheld in New York City on April 16-19, 1989

This award is in support of the Structural Stability Research Council and its activities. The principal activity will be the conduct of a colloquim on a world basis in order to have some U.S. influence in the development of world specifications and codes which will affect the participation of U.S. firms in world projects.